U.S.-French Joint Seminar: The Reproductive Biology of the Genus Ficus in Seasonal Environments, University of Miami, April, 1988

This award will support a U.S.-France Joint Seminar on the Reproductive Biology of the Genus Ficus in Seasonal Environments. The seminar will be organized by Prof. Doyle McKey of the University of Miami, Coral Gables, and Dr. Finn Kjellberg of the Unite de Biologie des Populations et des Peuplements, National Center for Scientific Research, Montpellier, France. The peculiar reproductive biology of the genus Ficus, tied to pollination by species-specific fig wasps, limits most of its representatives to regions where both the plant and wasps can be reproductively active year-round, unrestricted by cold seasons. Most of the species are therefore located in tropical environments. However, in areas of the Mediterranean and in subtropical southern Florida, outlying species of Ficus can be found, despite a marked cold season. This seminar will explore parallels and contrasts between adaptations of these species to seasonal environments. Topics will also include the relationships between adjustments in reproductive phenology and other aspects of fig and fig-wasp biology. This seminar will be an important step in coordinating research efforts worldwide on fig/fig wasp mutualism, a system that has contributed significantly to theoretical and empirical studies in population biology.